Comparative and Integrative Vision Research, SICB Conference, Toronto, Canada January 2003

This Symposium on Comparative & Integrative Vision Research is part of the annual meeting of the Society for Integrative & Comparative Biology (SICB). It addresses recent advances in vision, with a plan that integrates multidisciplinary work including development, molecular biology, optics and sensory ecology, and evolution. The meeting emphasizes interdisciplinary interactions among newer and more established investigators. Introduction of new people to the society is enhanced by the international aspect of the meeting in Toronto, Canada. Funding assists with travel awards for participants to attend the meeting.
The impact extends beyond sensory neuroscience to the fields of sensory ecology and evolutionary biology, by discussions at the meeting and publication in the journal Integrative & Comparative Biology. There is a further impact on scientific education and training by the emphasis on graduate and undergraduate participation.